NSF Young Investigator

9357677 Kallinderis The proposed research addresses large-scale simulation of fluid flow and general transport phenomena. The objectives are the development of parallel adaptive numerical algorithms and dynamic data structures which are portable and architecture-independent. These developments should lead to dramatic increases in computational performance and efficiency.